Colonist Land Use and Deforestation in the Ecuadorian Amazon

9320819 BILSBORROW The goal of this research is to investigate the factors influencing land use and deforestation by migrant settlers in the rainforest of the Ecuadorian Amazon. This area, which is considered to be one of the world's "hot spots" in terms of its rich biodiversity, is now undergoing massive human intervention in the form of agricultural colonization by spontaneous flows of migrants along roads built by petroleum companies. Currently, the conflicting aims of protecting the environment and economically developing the country are dramatically apparent; satellite photos of the region taken over the past decade vividly show rapid deforestation. This project builds on a previous grant from NSF which was used to collect critical information from 419 colonist households. This project will analyze those data using Tobit estimation procedures to explain the proportion of settlers' lands devoted to different categories of land use. These proportions will be explained using three major sets of variables: (1) household demographic and socio-economic characteristics, (2) natural resource conditions on the farm, and (3) the policy and institutional context. This research will provide important new insights into the factors influencing the behavior of colonists in one of the world's most important and sensitive environments. Thus it will contribute to our basic understanding of the interaction of factors in a developing area with a deep tension between environmental preservation and economic development. Results of the research should contribute to the development of more appropriate policies to promote sustainable development in the region.